The Synthesis and Polymerization of Substituted {l.l.l} Propellanes to Create Novel Rigid-Rod Polymers

9416937 Sanford This award is the starter grant increment of Dr. Sanford's Postdoctoral Research Fellowship in Chemistry award. The focus of the research is the design and synthesis of substituted 1.1.1 propellanes and their polymerization to novel rigid-rod polymers. Synthetic targets for the monomers will be tri-substituted propellanes to enhance polymer solubility, bridged propellanes to force regiospecificity, and spiro-linked propellanes to make comb-shaped polymers or induce helical polymer structure. Once made, the use of rigid-rod polymers in self-assembling systems and as building blocks for nanotechnology will be explored. Apart from the intrinsic interest in propellane rigid-rod polymers as novel materials, this award will provide synthetic polymer experience to undergraduate students which should serve them well either in graduate school or in industrial careers.